Scholarships for Attracting and Retaining High Ability Computer Science and Engineering Students at Tuskegee University

This project provides 30 computer science and engineering scholarships to academically talented financial needed students. The amount of each award is $3125 annually. The support for the students in this program is leveraged on the experiences gained from a previous CSEMS award within the College of Engineering, Architecture and Physical Sciences. Student support activities include comprehensive faculty mentoring, tutorial programs, and advising and counseling. These activities support the educational quality of the course of instructions delivered to the students, and they aid in curbing the high attrition rate of the computer science and engineering majors.